Energy- and Angle-Resolved Photoelectron Spectroscopy

REMPI Photoelectron spectroscopy is used to measure the amplitudes, phase shifts and signs of the phase shifts in NO. Extensions of research via modifications of the experimental apparatus will enable the complete determination of the scattering matrix and extend the approach to a much wider class of molecules. This will bring our understanding of the photoionization of molecules to the level that we now understand atomic photoionization.